Computer Assisted Microprocessor Lab Station

This project develops a laboratory facility designed to train students in the maintenance of microprocessors. The scope of the facility ranges from introductory microprocessor cencepts through advanced, industrial-standard microprocessor systems. Trouble-shooting equipment and techniques, along with familiarity with state-of-the-art system architecture is heavily emphasized. This award is being matched by an equal amount from the principal investigator's institution.